Collaborative Research: Coordination for the Geospace Environment Modeling Workshops

This project will provide for the organization of the 2007 Geospace environment Modeling (GEM) workshops. The GEM workshops were organized by faculty at Rice University. The calendar year 2007 marks a transitionary period for the organization of the workshops to move to a new home. During the transition, the organization and management of the workshops will be shared between Rice University and Virginia Polytechnic University. There will be two workshops organized for 2007, a one week workshop in June and a one day mini-workshop to be held in conjunction with the fall meeting of the American Geophysical Union.